Applications of Lasers in Chemistry

The aim of this project is to introduce upper-level undergraduate chemistry students at James Madison University to the uses of lasers in various aspects of chemistry. Courses in instrumental analysis, physical chemistry, and biochemistry, and undergraduate research opportunities will be enhanced through this project. Included are new experiments involving Raman spectroscopy, regular, polarized, and phase sensitive emission spectroscopy, multiple photon effects, laser vaporization, and thermal lensing. These techniques will be incorporated through the acquisition of two lasers, Nd:YAG and He/Cd units, plus a suitable selection of accessories. Lasers have had a significant impact on the practice of modern chemistry. This project will expose students to many of the important chemical applications of lasers.